Molecular Architecture of Light-Energy Transducing Systems

Cyanobacteria (blue-green algae) are a widely distributed group of bacteria which carry out oxygen-evolving photosynthesis similar to that characteristic of higher plants. The studies to be performed are directed at achieving a detailed understanding at the molecular level of the structure and biosynthesis of the photosynthetic apparatus in these organisms. The specific areas to be studies are (a) the unusual light-harvesting proteins (biliproteins) of marine unicellular cyanobacteria, a recently discovered group of important contributors to primary productivity in the sea; (b) exploitation of these proteins for the determination of energy transfer pathways within biliproteins; (c) continued development of biliprotein-based reagents for multiparameter studies of cells and molecules; (d) elucidation of the pathways of synthesis and attachment of the bilin (tetrapyrrole) prosthetic groups that endow biliproteins with the ability to absorb visible light; (d) the structural and functio use light- energy transduction in practical ways. Specifically he proposes to study subunit and bilines of phycoerythrins from marine cyanobacteria, to reconstruct biliproteins from bilin and apobiliproteins, and to examine the role of N-mentyl asparagine on phycobilisome function. One criticsm of the proposal is that there is no discussion of how the results will add to our knowledge of biliprotein function. Another is that often the experimental approach lacks detail and can not be fully evaluated. Finally there is considerable concern from the reviewers that the proposed methylation study that will consime a lot of research time, may not lead to anything. In light of the excellent background, past accomplishments and the need to keep this study going, the panel recommends funding.